REG: Ball-Plane (Modified Bowden Leben) Friction and Wear Tester

Matching funds will support the construction and assembly of a ball-on-plane friction and weat tester. The equipment will be used to develop and validate a new predictive wear theory and as a basic instrument to support general tribology research.